Operation SWAB: Monitoring of Ship Contamination

9633180 Ostlund This award provides funding to continue a University of Miami program that tests UNOLS vessels and various laboratories for 14C and tritium contamination prior to NSF- funded cruises that will conduct natural tracer research. This program is run by Dr. Gote Ostlund and Dr. Zafer Top as a service to the oceanographic community. The program has been in existence for fifteen years, and this award will extend the program for another five years. ***